U.S.-Brazil Cooperative Research in Source Coding and Digital Phase Modulation

This award supports cooperative research on communication and information theory by William Pearlman and John B. Anderson of Rensselaer Polytechnic Institute and Weiler A. Finamore of the Pontifical Catholic University in Rio de Janeiro. The proposed research will advance our knowledge in areas of data compression and bandwidth-efficient modulation. The work will be divided between efficient digital representation of information generated by analog sources and the development of modems which use continuous-phase modulation. The latter is one the latest innovations in digital information transmission. This work brings together two leading research groups in the two countries. Dr. Pearlman is well-known for his work on quantization and new structures for optimal source codes and Dr. Finamore has contributed to the subjects of coded modulation and source coding. The collaboration should benefit the scientific efforts of both countries leading to advancements in theoretical knowledge and practical applications as well.